Microcomputer-Assisted Socratic-Dialogue-Inducing Laborator-ies in Introductory Physics Courses

This project will undertake exploratory research and development of microcomputer-assisted laboratories in introductory university physics courses, especially those courses which provide the pool of high-school physics teachers. Previous work has led to the initiation of Socratic-Dialogue- Inducing (SDI) labs which pre- and post-course tests show to be effective in changing students' conceptual understanding of mechanics. The investigator will attempt to write Socratic- dialogue computer tutorials based on his earlier work and will attempt to utilize the very high performance new NEXT microcomputer in a way that would allow the computer to supplement and enhance the work of the professor in charge of the laboratories.